Request for Purchase of Modernized Testing Center

A loading frame will be purchased for projects involving the use of two dimensional and three dimensional computer vision to study the surface deformation near a growing crack and a static crack, and optical measurements of strain at high temperatures near 1000oC. The research will extend strain measurement techniques to lower size scales to study deformation and fracture phenomena at the grain scale.